SBIR Phase II: Anti-fouling surface modifications for purification membranes

This Small Business Innovation Research (SBIR) Phase II project will address the challenge of fouling on membranes used in biopharmaceutical processing. The successful application of this coating would enable increase in the membrane lifetime and product yield of various production streams as less of the valuable compounds remain trapped in the membrane. This can increase production capacity for life-saving medicines, reduce production costs and, in certain cases, enable continuous biopharmaceutical manufacturing. Furthermore, functionalization of membranes currently involve significant quantities of environmentally harmful solvents, which may be leachable during usage of the membrane. This issue is avoided in the current project by utilizing initiated chemical vapor deposition (iCVD) process which does not require any solvent. This coating technology can also be extended to other systems including wastewater purification, food & beverage production, industrial separations, and medical devices that rely on a similar functionalization.

The objective of Phase II will be to demonstrate a commercially viable manufacturing process to produce surface modifications within porous membranes using the iCVD process. Previous work in this subject has focused on top-coats on the top surfaces of reverse osmosis membranes, but the chemistries utilized have never before been demonstrated within interior structures of the membrane filters. During the Phase II work, the performance of the coatings will be optimized by using existing deposition equipment to tune the coating chemistry and process conditions to maximize the flux and throughput by minimizing protein fouling. The other main technical goal of the work will be to translate the current batch process into a continuous roll-to-roll process that is amenable to large-scale manufacturing. The outcome of this study will be a proven coating chemistry that is effective and durable in the membrane application, and an optimized manufacturing process capable of being implemented within current standards of membrane manufacturing.